Technology Tools for Science and Mathematics Learning

9355706 Meisner University of North Carolina at Greensboro Technology Tools for Science and Mathematics Learning The UNC Greensboro, in cooperation with nine other universities, provides summer workshops on the uses of technology and follow up support for teachers from twenty school systems in the state. In collaboration with universities, other education agencies, and all state school systems, 230 inservice and 170 preservice teachers are trained to use the current technologies that are available as tools to enhance science and mathematics learning. Teachers from 135 schools each participate in a two-year enhancement program, meeting for two weeks each of the two summers and 12 additional days during the school year. Topics include computer software, data probes, data storage, and telecomputing. E-mail and database support are provided through the state system for teachers known as NEWTON. The summer workshops are organized with the mornings dedicated to the teachers learning the tools and the afternoon to hands-on work with the technology. The staggered plan, the multiple settings, and the supporting communications technologies enable teachers to work with their peers throughout the school year. Cost sharing is estimated at 109%. ***